Supersonic Nozzle Flow Separation and Resulting Plume Characteristics

Abstract
CTS-0072964
D. Papamoschou, University of California, Irvine

A converging/diverging nozzle, with an adequate ratio: "upstream stagnation pressure/receiver pressure", will deliver a fully expanded supersonic flow. For pressure ratios above the value for a completely subsonic flow, but below the "adequate level" noted above, a subsonic flow will be delivered from the diverging passage.

The PI notes that a properly contoured diverging passage can provide a strongly unsteady flow and that this exiting flow can be used for the benefit of a number of applications. The present bridging grant (one-year) is to permit the PI to better document the basis for this unsteady flow and to define, if appropriate, a focussed research effort to more thoroughly investigate it.